Wetting Properties of Surfactant Systems

The objective of this proposed research is to study both theoretically and experimentally the wetting behavior of surfactant systems, with emphasis on microemulsions. A new thermodynamic theory of wetting transitions will be developed in which the effects of gravity, which are important in these systems, will be taken into account. Conditions under which wetting transitions occur, as related to the structure of the surfactant, will also be undertaken in conjunction with this study. Experimental methods to be used include novel titration calorimetry, dynamic contact angle analysis, and enhanced videomicroscopy. A new theoretical model, based on molecular thermodynamics, will be developed, which relies only on readily measurable parameters, allowing a direct comparison of predictions and experimental results. The proposed research is of both fundamental and practical significance. It will be beneficial to our fundamental understanding of interfacial phenomena in surfactant systems as well as the numerous applications in which the properties of surfactant systems play an important role, such as enhanced oil recovery, detergency, liquid printing, microelectronics, magnetic recording media, and novel separations processes. It has recently been observed that, as one moves away from a critical point in a microemulsion system, a wetting transition can occur between the microemulsion phase and the excess phases. This phenomenon occurs only for some surfactants. The proposed work will investigate the role of surfactant structure in the wetting transition. It will focus on the development of a theoretical model of microemulsion formation which will deal in a novel manner with the role of the interphase region in the formation of microemulsions. Specifically, the structure of the interphase will be related to the interfacial tension between the phases. As the model will contain only measurable thermodynamic parameters, the ability of the model to predict a wetting transition will rigorously test the model. The proposed research is of both fundamental and practical significance. It will be beneficial to our fundamental understanding of interfacial phenomena in surfactant systems as well as to the numerous engineering applications in which the interfacial properties of surfactant systems play an important role, such as enhanced oil recovery, detergency, liquid printing, microelectronics, magnetic recording media, and novel separations processes.